Conference: IMRC 2025 - Symposium on Quantum Materials

Non-technical Abstract

This symposium on quantum materials will be part of the International Materials Research Congress (IMRC) 2025, a joint congress between the USF Materials Research Society (MRS) and the the Sociedad Mexicana de Materiales (SMMater), which will take place at the Cancun Convention center August 17-21, 2021. The workshop, organized by the PI, aims to bring together theoreticians and experimentalists from all over the world to advance and move the field of quantum materials forward. The support will allow US students and faculty, as well as the PI to attend the symposium. The symposium will feature a tutorial session specifically aimed at students.

Technical Abstract

This symposium on quantum materials provides a platform for researchers to share the latest advancements in understanding and developing new materials with unique quantum properties, which could lead to breakthroughs in fields like quantum computing, quantum sensing, quantum imaging, quantum communications, and advanced electronics. Contributions to this symposium will be published in MRS Advances.